Development of Computer Graphic Visualization Aids for the Undergraduate Chemistry Curriculum

9354453 Lewis The project will develop high-end workstation quality computer graphics to aid in the visualization of concepts taught throughout an undergraduate chemistry curriculum. The goal of the work is to focus on visual presentations, and real-time visual manipulations, of a variety of concepts that are included in the current chemistry curriculum. Specific projects include 3-dimensional animation sequences of atomic and molecular orbitals, 3-D views of polymer structure and stereochemistry, videos that introduce basic stereochemical concepts in organic chemistry, and animated sequences of crystal structures and Miller index planes. Additional projects include other basic organic transformations, periodic trends, and hybridization. The specific goals of this project are to develop materials that can be used in courses throughout the U.S. and can be readily distributed on computer disks, laser disks, and video tapes, so that the efforts of this project can have a broad impact on the national undergraduate and high school chemistry curriculum. ***y